Merit Operations and Management of NSFNET Backbone

Merit, Inc. will serve as the organization responsible for NSFNET. It will execute the required agreement with NSF/DNCRI and other involved parties, will manage the financial aspects of NSFNET operation, and will provide the central management, operation, and policy coordination for NSFNET. In addition, Merit will acquire the equipment and circuits required to construct the network, will operate the network, and will coordinate the process so as to meet the NSF requirements for network engineering, protocols, and standards. Merit will arrange for policy and planning support for NSF/DNCRI and provide a full set of NSFNET Information Services. Merit has arranged for major involvement by IBM and MCI to assist in acquiring the necessary technology and transmission facilities needed for NSFNET. Merit's role as an integrator of the technology provided by its two industrial partners in this effort makes possible an extraordinarily powerful network architecture based on synergy between packet and circuit switching under the control of sophisticated network management tools.